SBIR Phase I: Fluidized Bed Direct Carbon Fuel Cell

This Small Business Innovation Research Phase I project aims to demonstrate the proof-of- concept and feasibility of direct carbon conversion into electricity in a fluidized bed high temperature electrochemical generator. If successful, the proposed work will serve as a prelude to direct electrochemical conversion of coal to electricity. The proposed fluidized bed direct carbon fuel cell (FB-DCFC) concept for generation of electricity is based on electrochemical oxidation of carbon at 700-900oC, as opposed to combustion in air at 1200-1400oC as is the case in conventional coal-burning processes. The FB-DCFC employs a solid oxide electrolyte cell inside a bed of fluidized carbon.

The challenge of how to use coal in an efficient way to generate electricity without damaging the environment is significant. FG-DCFC offers a compelling opportunity and promises a significantly more efficient, cost effective, and responsible way to use coal with minimal impact to the environment. If successful, this technology promises to serve both the energy security and the energy needs of this country, and enjoy a huge market opportunity that could be in the billions of dollars worldwide.